Friday Harbor Laboratories Scientific Equipment

9311701 Willows The Friday Harbor (FHL) is the marine biological facility of the University of Washington. It offers biological resources and scientific facilities in support of the work of marine scientists from national and international institutions. FHL is located in the San Juan Islands in the State of Washington at the junction between Puget Sound, Juan de Fuca Strait and Georgia Strait where an unusual diversity and richness of marine life occurs. Topics of research range from cell biology to community ecology and engage zoologists, fisheries biologists, Oceanographers, botanists, paleobiolgists, and researchers from various biomedical fields. Some organisms are studied because of their ecological importance, others because they are useful models for the study of ecological, developmental, or physiological processes. At FHL, a high priority is placed upon providing a suitable environment (instrumentation, field biological resources, logistical support) for research that requires marine organisms. Although over 90% of the FHL operating budget comes from State of Washington, over 65% of the scientific people whose work is supported by FHL are from institutions outside the State of Washington. The University of Washington has recently completed an extensive review of physical facilities, and academic programs of the FHL. Recommendations include extensive replacement and modernization of facilities over 10 years. The University has committed significant resources to the first component of this modernization program. This project will provide for replacement of one microscope, as a part of that renewal. ***